Introduction of Psychobiology into the Curriculum

The discipline of psychobiology is being introduced into an interdepartmental advanced level research seminar for psychology and biology majors. Improved physiological measurement experiments are being added to both the laboratory and the research components of the undergraduate psychology and biology curricula. The acquisition of an eight-channel Narcotrace-80 physiograph with the necessary accessories is allowing measurements in sleep physiology and learning, classical conditioning, and biofeedback, as well as heart and muscle physiology. Detailed and accurate physiological measurements are being facilitated with the introduction of physiobiology into the curriculum.